Post doctoral Research Associateship in Computational Science and Engineeing

9310296 Bartolotti The proposed postdoctoral training and research plan involves the development of empirical and quantum mechanical force fields for use in molecular dynamics simulations, and application to biological systems containing metal ions. The main objective of the development research is to design functional molecular dynamics code, both empirical and quantum mechanical, for studying large biological systems, optimized to run on the CRAY supercomputers or on massively parallel machines ***